Rational Points on Algebraic Varieties and Geometry of Curves and Surfaces

This project addresses several fundamental questions in
algebraic geometry and number theory.
The first part concerns the geometry of solutions to
algebraic equations.
Let X be a variety defined over a number field K.
Does there exist a finite extension L/K such that
X(L) is dense? One seeks criteria for when this
occurs in terms of the geometry of X.
It is still not clear what form such criteria should take.
The second part concerns the geometry of plane curves.
When is an abstract curve a degeneration
of smooth plane curves? What geometric properties do
such limiting plane curves have in common?
The third part involves the classification of surface
singularities. Given a family of projective normal
surfaces, when are the invariants of such a family
constant? Specifically, how does one tell whether
the self-intersection of the canonical divisor
is constant? The last part involves finding explicit
parametrizations for the curves of a fixed small genus.

Algebraic geometers study the structure of solutions to
polynomial equations. From ancient times, geometric
figures like circles and ellipses have fascinated
architects, scientists, and artists. The most compact
way to represent such a figure is to describe it as the
solutions to an equation. One basic question is
to classify the abstract figures that may be represented
by equations of a given form. Another is to understand
the common geometric properties of the solutions to
all the equations of a given form. This project seeks
to answer these questions for special types of curves
and surfaces.